Development of a Chemical Crystallography Resource Center

This award from the Chemistry Research Instrumentation and Facilities Program (CRIF) and the Major Research Instrumentation (MRI) Program will assist the Department of Chemistry at University of Arizona in developing a Chemical Crystallography Resource Center. The x-ray equipment purchased for the Center will enhance research in a number of areas including the following: (1) x-ray structure determinations of model heme complexes, (2) design, synthesis, and characterization of organic crystals, (3) synthesis and characterization of organic toxicants, (4) redox chemistry of thioethers with adjacent carbon-metal bonds, and (5) covalently linked oxo-Mo(V)/Fe(II)porphyrin centers. The X-ray diffractometer is used to make accurate and precise measurements of the full three dimensional structure of a molecule. The information obtained gives the precise values of all the bond distances and bond angles of a given molecule and it gives accurate information about the spatial arrangement of the molecule relative to the neighboring molecules.